A Variational Principle Based Study of Random Front Speeds

Abstract: DMS-0506766, J Xin, University of Texas

Title: A Variational Principle Based Study of Random Front Speeds

The project pursues analysis and computation of reaction-diffusion
front speeds in random media based on their variational principles.
Direct computation of the speed ensemble can be both expensive
and less accurate. Because front speeds are part of the large time
(large scale) behavior of solutions to stochastic reaction-diffusion
equations, one needs a large domain size, sufficient resolution of front
structures, and many realizations of random samples. The
variational principles are established
by exploiting the analytical and probabilistic properties of solutions.
Significant dimensional reductions are achieved so that only
associated linear problems need to be solved to find principal
eigenvalues or Lyapunov exponents. Besides being a useful tool for
analysis of speed statistics, the variational principles also help to
generate fast and efficient computational algorithms. The project will
explore this approach to study front speeds in various space/time random
media, the speed asymptotic laws and the dependence on statistics of
random media.

The project is motivated by flame fronts in the environment (forest or
building fires) and internal combustion engines of vehicles, where fluid
(air or liquid) motion could alter the speed of burning process
significantly. The fluid motion often contains uncertainties and
can be best described as random media. Scientific understanding
and efficient computing of front speeds can help to control the
spread of flames, and minimize the waste gases from the combustion engines
to benefit the environment. The methods being developed in the project
will contribute to both the understanding and computing
of random fronts, a subject largely in its infancy.